CCD Development at the University of California Observatories

The objectives of this project are improvement of CCD fabrication technology to make high quality, large CCDs more widely available to the University of California Observatories (UCO) and to the general astronomical community; improvement of UCO's capabilities to develop and use large CCDs and mosaics of large CCDs, and; training in instrumentation and detector technology for students at both the graduate student and post-doctoral level. CCD imaging sensors would be fabricated by Loral/Fairchild and detailed testing and characterization would be carried out in the new Lick Observatory Detector Development Laboratory. The principal investigators would develop procedures for enhancing the detector efficiency and would investigate methods for applying anti-reflection coatings to CCDs. Some of the CCDs fabricated under this proposal would be made available through the National Science Foundation to the general astronomical community.